CSUPERB Undergraduate Faculty Enhancement Program in Biotechnology for Two- and Four-Year College Teachers

9353952 Pauling This three-year program sponsored by the California State University Program for Education and Research in Biotechnology (CSUPERB) is designed to promote updated, current instructions in molecular life sciences and biotechnology at the undergraduate level. The program will offer summer workshops in molecular life sciences and biotechnology for community college and comprehensive university faculty. There will be six workshops in Molecular Biology for the Inexperienced at California State University (CSU) campuses throughout California (Bakersfield, Northridge, Sacramento, San Francisco, San Marcos, and Sonoma), aimed primarily at faculty teaching lower-division courses. Follow-up sessions will be coordinated with the annual CSUPERB Symposium and Conference held at the Cal-Poly Pomona campus. This coordinated approach will lead to stronger liaisons between California Community College and CSU faculty in the molecular life sciences, and to improved instruction in the molecular life sciences at the lower division levels. ***